Environmentally Conscious Manufacturing: Waste Minimizationin Chemical Processes

GER-9554576 Beckman In recent years we have observed extensive interest among industrial BS-level engineers, chemists, and biologists in returning to school to pursue a PhD in chemical engineering. In each of these cases, the parent company has contributed significantly to the work via access to corporate analytical labs, chemical samples, and outright cash gifts. Given that we have found that these non- traditional students are often amongst our best graduate students, due to their drive, experience, and maturity, we propose to employ the title graduate fellowships to support an increased number of such students in PhD research. Our experience is that research programs which emphasize water minimization are of great interest to our industrial colleagues, and thus we feel that use of the proposed fellowships in the area of waste minimization to attract students returning to school form industry will lead to a large number of applicants. Further, we propose to collaborate with the University of Pittsburgh Manufacturing Engineering Program by offering Pollution Prevention over MSEP's distance learning program. By participation in MSEP we foster greater interaction with local industry, and can identify and recruit students with interests in continuing on for the PhD vial research in waste minimization topics.